Second International Workshop on Connections in Steel Structures

State-of-the-art analysis of connection elements and fasteners, as well as the global response characteristics and the current analysis/design programs are to be discussed at the proposed international workshop. Proceeding's are to be published by AISC and distributed to civil engineering departments in the U.S.